Microworlds for Learning Through Mathematical Inquiry

Previous NSF-funded research has successfully developed intelligent tutoring systems (ITS) applying ideas from artificial intelligence (AI). This work has also uncovered important limitations of intelligent tutoring systems. ITS are generally limited to teaching relatively well-defined, algorithmic skills that they can be programmed to fully understand. This excludes many interesting areas of mathematics for which expert systems cannot yet be built. In addition, ITS are generally limited to teaching through didactic instruction. This excludes learning by construction, or through inquiry - an alternate model of learning that is poorly understood, yet increasingly regarded as important. The goal is to develop and evaluate computer-based environments that support the learning of mathematical skills which are not highly algorithmical and that support learning by methods other than instruction. The AI approach will be applied in new ways. The main research questions are: Can intelligent AI-based software tools be developed that support learning by inquiry? And can inquiry skills themselves - for example problem posing and productive guess-and-test technique - be learned by students in a supportive environment? In the past, inquiry strategies have not been demonstrated to be teachable, nor has inquiry been shown to be a cost-effective way to learn mathematical concepts. However, it is conjectured that in developing instructionist tools, ITS have provided a foundation for designing similar tools to support inquiry. New tools will be built to help computer environments guide students' explorations, productively manage "thrashing", and organize students' conjectures and explanations. "Microworlds" will be constructed for various mathematical content areas, and evaluate software products.